Conference: The Internet as a Large-Scale Complex System; Santa Fe, NM; March 2001

The program coordinators propose to organize a workshop titled "The Internet as a Large-Scale Complex System" to be held at the Santa Fe Institute in March 2001. The main purpose of the workshop is to provide a forum for disseminating relevant accomplishments and discussing future challenges associated with trying to gain a solid understanding of the dynamics and evolution of the global Internet from a broad and still unconventional perspective-complex systems dynamics. The coordinators plan to bring together network researchers with a group of distinguished researchers with expertise ranging from statistical physics, dynamical systems theory, and control theory to biological, physical and social systems. Select contributions from invited speakers will be published as part of the SFI book series by Oxford University Press.